Development of a Material Characterization Facility With Emphasis on Effects of Aggressive Environment

9512456 Sutton This Academic Research Infrastructure (Instrumentation) Award is to partially fund the development of a materials characterization facility with emphasis on testing in an aggressive environment. The long range goal of the research involved is life-prediction methodologies using mathematical models which incorporate accurate material parameters. Much existing data shows that safety throughout the lifetime of a structure is extremely sensitive to the environment, however except in very special cases there is inadequate ability to predict how safety changes as structures age. This facility will contribute to providing better experimental data in this area. ***